Computer Based Data Acquisition and Plotting Introductory Laboratory Experiments

Stetson University will purchase personal computers, digital plotters, and data acquisition modules. This equipment will be used to improve instruction in introductory physics laboratory courses. Students will learn basic techniques of computer-controlled data acquisition and analysis, and will study basic physical phenomena that are too fast for measurement by traditional techniques. Stetson University will match the NSF grant with an equal amount of funds.